Advanced Graphics Display Capability for Power System Monitoring and Control

Improved graphic visualization techniques are needed to enhance the performance and productivity of power system operations dispatchers. Critical information must be presented to the dispatcher in sufficient detail and clarity to enable fast assessment of, and proper response to a developing situation on the utility system. A future energy management system has been proposed. The organization of this system will be developed using expert-systems techniques and a high-order knowledge base to prefilter and declutter sensory data for presentation to an operator. This approach will include incorporating visualization of simulation data techniques to available, real-time data. The required software and graphics hardware required for this interactive display system will be proposed; a trial system will be evaluated. Results of this study will be demonstrated at a future workshop.